A Retrainable Class of Constitutive Models for Sand: A Neuro-Mechanistic Approach

In this study, a new, innovative and highly efficient neuro-mechanistic-based (NMB) constitutive models applicable to sandy soils will be developed. This will be accomplished by taking full advantage of the best features of both mechanistic and computational neuronet approaches to create new, innovative and robust constitutive model methodology. The research will capitalize on the powerful function approximation capability of computational neuronets and will utilize, at the same time, the best and most accurate information of mechanistic-based knowledge. To this end, a hybrid approach will be utilized to construct parameters- and assumptions-free constitutive models from available experimental stress-strain data. Additionally, these neuro-mechanistic models will generally be able to: I) construct, rapidly and efficiently, the desired one, two or three-dimensional constitutive models that can meet the needs of the dimension-types analysis from a given set of experimental date, and ii) model accurately the highly complex and strongly path-dependent stress-strain behavior of sand under various loading conditions by incorporating the dynamic-sequential updating scheme within the framework of the NMB constitutive modeling approach to be developed. Consequently, the applicability of the neuro-mechanistic-based constitutive models will be expanded incrementally to account for varying soil properties/parameters and/or in situ values.